Travel: NSF Student Travel Grant for the 2024 IEEE International Conference on Mobile Ad-Hoc and Smart Systems (MASS)

The IEEE International Conference on Mobile Ad-Hoc and Smart Systems (MASS) is a premier annual forum for sharing original, novel ideas in mobile ad-hoc and smart systems. The proposed travel grant aims to provide financial support to 10-15 graduate or undergraduate students who will attend IEEE MASS 2024, which will be held in Seoul, South Korea between September 23-25, 2024.

Reasons to support this request include providing the students with the opportunity to:
o Interact with top researchers within their research domain;
o Learn, listen, and exchange ideas with other students working in their research domain to build future collaborations;
o Learn what is considered state-of-the-art in design, implementation, analysis, evaluation, and deployment of computer systems and applications of mobile ad-hoc and smart systems.; and
o Attend topic specific workshops held in the conference.